IMPACT: A Regional Curriculum Implementation Effort

9730138 Silevitch This project creates a widespread implementation capacity for the use of standards-based curricula in the New England region. The project builds from the work initiated by the Project for the Enhancement of Science and Mathematics Education (CESAME) at Northeastern University. Specifically, the project: 1. Identifies, selects, develops, and supports at least seven Curriculum Implementation Centers (CICs) at regional locations throughout New England (Rhode Island, Maine, New Hampshire, Vermont.) 2. Prepares the CICs to create awareness and assist districts in the selection and implementation of standards-based curricula. 3. Connects the CICs with physical and electronic networks. 4. Supports the professional development of an Implementation Advisor (IA) for each Center. 5. Identifies and develops over 100 Curriculum Trainers (CTs) to work with teachers in participating districts. 6. Continues to use the CESAME task force to identify emerging new programs and tools for participating districts.